Conference: Leveraging AI and Information Literacy in K-12 STEM Education: Building a National Network of Teacher Educators Equipped to Prepare Teachers for the Future Workforce

Artificial intelligence (AI) tools are rapidly changing how information is found, evaluated, and used in classrooms nationwide. Middle and high school science and mathematics teachers are increasingly asked to help students navigate this shift yet receive little guidance on how to do so responsibly and effectively. Moreover, university faculty who prepare these science and mathematics teachers are themselves navigating this unfamiliar territory, without a shared framework for integrating AI tools critically, ethically, and effectively in science and mathematics classrooms. This award supports a national workshop that convenes 40 leading university faculty from secondary science and mathematics teacher education programs across the United States. The aim is to collaboratively define the competencies teachers need to guide their students to find, evaluate, and use AI-generated information and tools, and to translate these into a shared professional learning framework. Because participating university faculty prepare large numbers of teachers each year, the tools and the national network created through this workshop are expected to reach thousands of science and mathematics teachers. In turn, the project’s impact extends to hundreds of thousands of middle and high school students, helping ensure that they are prepared to think productively and critically about AI as they pursue careers in an AI-enabled workforce.

This project will seek to establish the competencies university faculty should prioritize when preparing secondary science and mathematics teachers to integrate AI tools in their classrooms. Clarity on this subsequently will help participants author a framework for professional learning for AI in secondary mathematics and science teacher education. The project investigators, with support from an advisory board of national leaders in science and mathematics teacher education and AI-enabled learning, design a two-day in-person workshop for 40 university faculty from secondary science and mathematics teacher education programs nationwide. Using a backward design approach, the workshop activities move participants through disciplinary and cross-disciplinary roundtables, resource development sessions, and framework building sessions. These activities define competency areas for using AI in secondary science and mathematics instruction, and help translate these competency areas into concrete instructional resources and learning objectives. Products include a validated set of learning objectives, a professional learning framework for embedding these competencies into pre- and in-service science and mathematics teacher preparation, and a sustained national network of participating university faculty to support ongoing collaboration and research. Impact is assessed through pre- and post-workshop surveys of participant beliefs and self-efficacy, a one-year follow-up reflection documenting changes to courses and programs, and collection of implementation case examples. The project estimates that faculty participants directly reach approximately 2,000 secondary science and mathematics teachers annually, who will in turn reach an estimated 150,000 middle and high school students each year; thus providing durable infrastructure for the sustained integration of AI-related competencies into science and mathematics teacher education nationally.

This project is funded by the STEM K-12 program, which supports fundamental, applied, and translational research on STEM learning in both formal K-12 education and informal learning environments.